Evolving Cellular Automata: With Genetic Algorithms

The goals of this research are to determine the usefulness of genetic algorithms in designing spatially extended, parallel systems to perform computational tasks. An important and novel component of this project is the development of appropriate theoretical frameworks for understanding both the computational strategies of the systems evolved by the genetic algorithm as well as the evolutionary process by which such strategies are designed. This research will make three major contributions: (1) advances in the study of how spatially extended parallel systems perform computations; (2) advances in the theory and practice of genetic algorithms; and (3) a foundation for applications to parallel computation problems such as image processing, noise reduction, texture detection, and the automatic discovery of coherent structures in image time series.